Integration of NMR Spectroscopy Across the Undergraduate Chemistry Curriculum

Chemistry (12) A 300MHz, high field, broadband NMR integrates modern NMR techniques into the curriculum and allows faculty to greatly expand the depth and breadth of laboratory courses, independent student projects, and undergraduate research capabilities. The NMR allows a number of experiments to be added across the chemistry curriculum. These experiments are chosen to communicate to chemistry students the versatility and dynamic range of experiments accomplished with a modern NMR. In addition, laboratory experiments are selected to build a strong foundation in NMR spectroscopy for students to launch, under the guidance of faculty mentors, more sophisticated independent research projects.